Millenial-Scale Climatic Oscillations in New Zealand During the Last Glacial Cycle; PEP III Transect

Abstract ATM-9700633 Denton, George H. University of Maine Title: Millennial-Scale Climatic Oscillations in New Zealand During the Last Glacial Cycle: PEP III Transect Paleoclimate records from Greenland ice cores and North Atlantic sediments indicate that the glacial climate over the North Atlantic basin was punctuated with large and frequent abrupt climatic changes (Dansgaard-Oeschger and Henrich events). Because the events first appeared to have been regionally restricted, most explanations have invoked regional forcing mechanisms. But quite a different perspective would emerge if these events were shown to be of this global-scale. SGER award supports a reconnaissance study of the glacial and vegetative paleoclimate record of the massive morainal deposits of the Southern Alps of New Zealand This will establish the paleoclimate potential of this record to contribute to our understanding of interhemispheric climatic linkages and forcing mechanisms for the last glacial cycle.